NSG: Studies in Optimizations with Applications

Intellectual Merit

-Develop theortetical techniques to analyze greedy heuristics with non-submodular potentail functions.
-Develop new techniques, design approximations with better performance ratio for some classical optimization
-Find new heuristics with better computational performance

Broader Impact

-Enhance advanced theory of optimization and algorithmic study in optimization
-Research will involve graduate students